Jewels of the Jungle

This project will produce "Jewels of the Jungle," an hour-long film for public audiences documenting the discovery of new species of endophytes and the isolation of their medicinal compounds. The film presents an exciting story of scientific discovery that takes the viewer around the world from Montana to Madagascar, in search of new species of plants important for medical research. Compounds isolated from endophytes have proven vital in the treatment of many diseases including cancer, AIDS, malaria, and drug-resistant bacterial and fungal infections. "Jewels of the Jungle" aims to enhance viewers' understanding of bio-chemical research and cultivate a better appreciation of scientific research in general.